XPS: DSD: Polymorphic Hardware Specialization for Domain-Specific Algorithms and Data Structures

Serious physical design issues are breaking down traditional abstractions
in computer systems and motivating computer architects to turn to
hardware specialization. Hardware specialized for a single task will
almost always be of higher performance and more efficient, in terms of
silicon area and energy consumption, compared to a flexible hardware
implementation that can handle many different tasks. Resolving this
tension between less efficient general architectures and more efficient
specialized architectures, particularly within the context of mainstream
computing platforms, is one of the grand challenges facing the computer
architecture community.

The project is based on an observation of how software engineers address
analogous challenges in the very applications targeted for
specialization. Software engineers seek to create specialized yet
flexible code, and the ubiquitous approach is to develop carefully
crafted libraries of algorithms and data structures that are polymorphic
over the types of input, output, and stored values. The key idea is to
leverage the effort software engineers have already invested and explore
polymorphic hardware specialization in the form of polymorphic
algorithm-specific units and polymorphic data-structure-specific units
for template-based software libraries. The project is using a vertically
integrated approach to investigate polymorphic hardware specialization
from a variety of perspectives including computer architecture, hardware
synthesis, compiler optimization, and runtime systems. The techniques
developed as part of this project will be an important step towards
addressing the physical design issues, which threaten to disrupt the
long-standing trend towards ever increasing computing performance relied
on by all aspects of modern society.